Fallen Leaf Lake Conference: Promiscuous Plasmids in gram- negative and positive bacteria South Lake Tahoe, CA, Sept.13-16,1990

The Fallen Leaf Lake Conferences initiated in 1985 is a yearly event devoted to the molecular biology and genetics of plant pathogenic bacteria, fastidious prokaryotes and related areas dealing with these and other microorganisms. This year's conference follows the ancillary field of broad-host-range (or "promiscuous") plasmids, the first meeting of which took place in Birmingham, England in the summer of 1987 (sponsored by EMBO). The Fallen Leaf Lake Conferences offer the special opportunity for plant pathologists to interact with experts in a particular field. Only the latest unpublished information is exchanged at the Fallen Leaf Lake conference and ample opportunity for scientific interactions is provided during the course of the conference. The conference is attended by members representing most of the major laboratories from many different countries, and therefore provides excellent opportunity for graduate and postdoctoral student to interact with internationally recognized experts in a specific field.